Research Experiences for Undergraduates in Environmental Science and Engineering

The objective of the Research Experiences for Undergraduates program in Environmental Science and Engineering at Florida International University is to stimulate and promote interest, curiosity, creative and critical thinking of undergraduate students in environmental science and engineering during their early ears in the undergraduate program. This work will involve the students in a comprehensive research program relative to movement and dispersion of contaminants and treatment of contaminated media to minimize potential damage to the environment. This research program will engage students in different areas of research relative to movement and treatment of contaminants. The research will be conducted in the following areas: environmental sciences (environmental biology, environmental physics, and environmental chemistry; environmental engineering (environmental modeling and process design); environmental ethics.